Infrared Spectrophotometry of Transient Nova Events

Woodward, Charles 95-26486 Dr. Woodward will address five research problems in the study of classical novae evolution: (1) chemical abundances of nova ejecta from coronal and forbidden emission line spectroscopy; (2) determinations of the grain size distribution and mineral composition of nova dust; (3) differences in the temporal evolution of the broadband spectral energy distribution and light curves in the carbon-nitrogen-oxygen vs oxygen-neon- magnesium novae; (4) dynamical studies of nova ejecta; and (5) measurements of the density and masses of the ejecta. ***